Mathematical Sciences: Problems in Applied Mathematics and Geometry

Support for three undergraduate researchers will be provided by this award. The students will work with the principal investigator on selected questions in applied mathematics taken from problems arising in industrial settings. Typical of these questions are studies of light loss in space telescope metering, modeling clocks in space and analyzing relativistic effects of light paths. Some of the work will involve numerical approximations. Visits to industrial research facilities are also planned.